Dissertation Research: Phylogeny and Character Evolution in the Blakeeae (Melastomataceae): Neotropical Epiphytes with Mite and Ant Domatia.

The Blakeeae (Melastomataceae) are large-flowered, mainly epiphytic,
components of neotropical forests with diverse pollination syndromes (including rodents)
and mutualistic associations with ants and mites. The goals of this study are to infer
phylogeny using morphology and five molecular regions; to use the phylogeny to track
the evolution of mite and ant plant associations; examine patterns of character change,
particularly anther morphology and other floral modifications; and explore speciation and
biogeography.

Broader impacts. Undergraduates will be trained in scanning electron microscopy,
molecular, and anatomical techniques. This project is fostering collaborations between
North and South American botanists. Results will be disseminated through scientific
journals, meetings, and classroom lectures. Blakeeae are mostly limited to highly diverse
and endangered montane, neotropical forests--understanding them will aid conservation.

Intellectual merit. WSJ has broad expertise in plant systematics and morphology. DSP
has training in morphological, anatomical, and molecular techniques. Both are involved
in international collaborative investigations into melastome phylogenetics, are active in
the scientific community, and are winners of competitive teaching awards. This will be
among the first morphological analyses to provide access to all metadata, will contribute
considerably to understanding melastome phylogenetics, mite- and ant-plant
relationships, and form the foundation for a monograph.